(RUI) Collaboration: Quantitative Modeling of Cold-Atom Bose-Einstein Condensates and Atom Lasers

Support is provided for a graduate student to perform research in the theoretical and computational modeling of cold-atom, Bose-Eisentein condensates and atom lasers. This work will be done in collaboration with Mark Edwards of Georgia Southern University and Charles Clark of NIST.